AN ATM INTEROPERABILITY TESTBED FOR THE NATIONAL INFORMATION INFRASTRUCTURE

NCR-9528184 George Whitehead Bellcore, Tektronix, the Joint Interoperability Test Command (JITC), and the University of Pennsylvania will implement an ATM Interoperability Testbed to develop tools, procedures, and standards that promote interoperability among Asynchronous Transfer Mode (ATM) products. The project will focus on three key areas of ATM technology and include relevant research and development of interoperability testing systems. These areas are 1) ATM signaling Interoperability, 2) ATM traffic management interoperability, and 3) higher-layer protocol interoperability. These areas are chosen because standards for signaling, traffic management and higher layer protocol interoperability.